"Applications of Compact Interpolation Theory"

This project is for a preliminary investigation of certain applications of compact interpolation theory via numerical solutions of differential equations. It is expected that some the differential equations involved will have applications in biomathematics.